Mathematical Sciences: Mathematics

This project will partially support the research visits of U.S. scholars in the mathematical sciences to the Institut des Hautes Etudes Scientifiques (IHES) in Bures-sur-Yvette, France. This international institute is comparable to the Institute for Advanced Study in Princeton, New Jersey and, in addition to support from the National Science Foundation, is supported in part by science agencies in a number of other countries. Areas of research at the IHES include algebraic geometry and number theory, group representations and invariants, harmonic analysis, convex sets and analysis, geometry and topology, discrete groups in relation with algebra, differential geometry, dynamical systems, and ergodic theory, and general relativity and cosmology.